Contact and Symplectic Structures and Holomorphic Curves

Abstract

Award: DMS-0603957
Principal Investigator: Helmut Hofer

The field of symplectic geometry has a large interface to other
mathematical disciplines, like algebraic geometry, differential
topology (particularly in small dimensions) and dynamical systems
to name a few. Dr. Hofer's project is concerned with the study of
fundamental aspects of symplectic geometry, its applications to
dynamical systems, as well as the development of mathematical
technology to address analytical problems arising in the
field. One part of the project is devoted to the study of
Symplectic Field Theory (SFT) which currently is the most general
and most comprehensive theory of symplectic invariants. Another
part develops a general approach for studying certain classes of
nonlinear elliptic partial differential equations as they occur
in SFT. These methods potentially should have other applications
in nonlinear analysis as well. A third part is devoted to the
applications of the theory to dynamical systems. The aim is the
development of mathematical infrastructure, based on a
combination of Floer theory and the theory of finite energy
foliations due to Dr. Hofer and his collaborators. This research
aims at the understanding of long-term behavior of iterated
area-preserving disk maps with its numerous applications.

Many physical systems like the flow of an incompressible ideal
fluid, the movement of a satellite under the gravitational forces
of celestial bodies, or the movement of charged particles in a
magnetic field, to name a few, are examples of so called
dynamical systems. The mathematical theory of dynamical systems
provides tools to understand their complex behavior and allows to
make predictions. The particular examples mentioned above are of
so-called Hamiltonian nature and have an intricate structure
leading to extreme complicated dynamical behavior. Stabilizing a
beam of particles in a partic= le accelerators, or sending a
probe on an interstellar journey, or understanding the dynamics
of a stationary flow of an incompressible ideal fluid are
problems whose mathematical underpinnings are touched by the
research proposed in this project. Some of the methods developed
potentially have application to larger classes of partial
differential equations of relevance in physics.